Information Assurance Capacity Building Program

Computer Engineering (32)

This project involves the running of the Information Assurance Capacity Building Program (IACBP), intended to improve the capacity of Minority-Serving Institutions (MSIs), including both Historically Black Colleges and Universities (HCBUs) and Hispanic Serving Institutions (HSIs), to offer high quality Information Assurance (IA) education and a specialization in Computer Forensics Science. The IACBP aids MSIs to develop IA curricula under advisement and with academic enrichment from established leaders in the field, leading to the implementation of new IA activities at the MSIs. The objectives are to build new capacity or expand existing capacity to offer IA courses and programs at MSIs not currently designated as Centers of Academic Excellence (CAE) in IA Education; to expand the research opportunities in IA; and to help build expertise in Cyber Forensics Science. As a two-year workshop, the program gives a two-week session during the first year that presents IA theory and practice, and then gives a three-day follow-up session during the second year where participants present their initial outcomes and results to their peers. This method integrates three main components: technological knowledge, pedagogical support and an individual curriculum development plan.